ScienePad: A Mobile and Intelligent Problem Solving Environment for PDE Based Applications (CS&E Postdoctoral Associate)

Houstis 9404859 This project focuses on creating systems and tools for scientific applications that require the solution of complex partial differential equations (PDEs) in two or three dimensions. It will enable the rapid and easy development of systems to model scientific phenomenon with PDEs. An intelligent interface to support the tools on mobile platforms, will minimize the communication between the mobile device and the static hosts which give access to HPC (High Performance Computing) hardware.